NYI: Optimal Motion Compensation for Video Compression

Orchard Efficient compression of video sequences should exploit the high interframe redundancy due to the smoothness of motion fields in typical scenes. Current video coding algorithms use very simplistic motion models, limiting the degree to which motion- induced redundancy can be exploited in video coding. This research is investigating improved methods for estimating motion in video sequences, and compensating for that motion to achieve increased coding efficiency. Methods are being considered which estimate motion at the encoder, requiring transmission of motion overhead, and as well as those which estimate motion directly at the decoder. The goal is to provide a unifyied framework for these two approaches to motion estimation, and to develop hybrid algorithms taking advantage of the best features of both approaches.